Magneting Tagging of Wood Preservatives

9361884 Anthony In-service performance of treated wood products depends on consistently inducting specified quantities (retention) of preservative chemicals to require depths (retention) of preservative chemicals to required depths (penetration) within the wood. Quality control procedures to ensure adequate penetration and retention currently rely on the removal of increment cores from a subset of all treated members for subsequent laboratory analysis. The proposed research will examine the feasibility of magnetically tagging wood preservatives to enable simple nondestructive evaluation of penetration and retention of preservative chemicals in treated wood. In magnetic tagging, a small amount of extremely fine "sensor" particles is uniformly distributed throughout the preservative prior to treatment. When subsequently interrogated by eddy current nondestructive evaluation, the tagged wood responds with a characteristics signature than can be related to preservative distribution. a feature of eddy current testing involving magnetically tagged materials is that electromagnetic energy can penetrate significant thicknesses of conducting tagged materials. This permits the volumetric characterization of tagged materials. The technical objectives of the Phase I research are (1) to evaluate the feasibility of introducing ferromagnetic particles into preservative chemicals and achieving penetration of the magnetically tagged preservative into wood, and (2) to evaluate the feasibility of measuring penetration and retention of magnetically tagged preservative with eddy current. ***